Nonmonotonic Logic of Commonsense Reasoning and Their Algorithmic Aspects

This work studies non-monotonic logics and their application to common sense reasoning about knowledge and belief. It addresses both theoretical and algorithmic issues of non-monotonic modal logic. The results will increase understanding of non- monotonicity and will be applicable to non-modal formalism of non-monotic reasoning such as default logic, logic programming, and truth maintenance systems.